Mathematical Sciences: William H. Roever Lectures in Geometry and Algebraic Geometry Conference, June 13-17, 1989; St. Louis, Missouri

This project will support the William H. Roever Lectures in Geometry and Algebraic Geometry to be held June 12-17, 1989 at Washington University in St. Louis, Missouri. Professor William Fulton of the University of Chicago will be the principal speaker and will deliver five lectures in algebraic geometry. In addition, ten other speakers will give one-hour talks on a variety of other topics in the field of algebraic geometry, including algebraic threefolds, algebraic cycles and arithmetic, vector bundles in the study of linear series, and resolution of singularities. The conference organizer hopes to attract algebraic geometers from across the country so that researchers may be updated on the latest developments in the field. Participant support will be available.